Mathematical Sciences: Research in Mathematical Statistics and Probability

Although its origins are highly abstract, stochastic approximation is a technique used widely as part of computational algorithms, for example simulated annealing. This research addresses at a fundamental level three current difficulties: failure to converge to a global minimum, random errors that do not form a martingale, and insufficiently rapid convergence, i.e., poor approximation for reasonable but finite sample sizes. Progress on each one of these should indicate directions to pursue in the modification and improvement of current algorithms.